Extend and Assess Research Ethics Education

This action funds a renewal project to extend and assess research ethics education in 3 ways:
a) Extend the "OpenSeminar in Research Ethics" doctoral course from two of the doctoral-degree granting universities in the University of North Carolina system to all seven doctoral campuses;
b) Assess the effectiveness of the OpenSeminar in achieving its pedagogical goals across the system;
c) Establish a mechanism and template for extending the OpenSeminar approach to Research Ethics Education to other state systems. The project is the nation's first effort to disseminate a standardized, interdisciplinary, inter-institutional, communally-oriented collaborative online curricular intervention in research ethics to all of the doctoral-degree granting institutions in a state university system and systematically assess the effectiveness of the intervention.

The project systematically guides and stimulates creative thought about issues in research in a technologically driven society. It encourages high ethical standards in students who, as professionals, will work in a globally inter-connected world where cultural differences and expectations can raise daunting dilemmas. Further, it dramatically improves the institutionalization of research ethics education, extending a novel curricular intervention across an entire state network with engineering and science doctoral candidates. It is expected that by developing alliances in science, engineering and social science graduate education, the program will provide a template for state systems of research universities across the US.